Creating An Interactive Zoo

9453757 Krakauer The Museum of Life and Science will use this planning grant to bring together zoo, botanical garden, and science center professionals to a) assess the feasibility of an "interactive zoo," b) identify animals species that exhibit behaviors in a zoo environment that provide natural opportunities for related interactive exhibits, and c) generate a White Paper reviewing relevant exhibits in zoos and science centers and proposing design criteria for the interactive exhibits. The planning activities include: the development of a "White Paper" that will include a review of key research findings in developmental psychology and visitor behavior as they apply to playgrounds, zoos, and interactive exhibit environments, an overview of relevant exhibit techniques and technologies, and case studies of existing exhibits; a 2-day meeting to discuss the issues; and travel to exemplary museums, zoos, aquaria, and botanical gardens. These results will be used in the development of interactive exhibits in an outdoor setting included in the museum's Master Plan 2000. They have proposed the analogy of a field research station in their approach to learning in an outdoor setting. They envision three thematic "field stations": "Down to Earth," "Watery Worlds," and "Catch the Wind." The specific exhibit plans will be finalized after the completion of the planning grant. Although the Museum of Life and Science will be the primary beneficiary of this planning activity, the background information gathered, the issues discussed, and the critical appraisals will be relevant to other museums with and interested in developing exhibits in an out-of-door setting. The results will be broadly disseminated by means of publications and presentations at professional meetings.